Conference on Value of Researchers with Japan Experience to U.S. S&T Communities / May 25-26, 1989 / Santa Clara, CA

This award will support a "Conference on Value of Researchers with Japan Experience to U.S. S&T Communities" in May 1989 in Santa Clara, CA. About 60 alumni of the Japan internship programs offered by the American Electronics Association and Massachusetts Institute of Technology will interact with representatives from the U.S. industrial, government and scientific communities. There are numerous barriers to increasing the number of American scientists/engineers who spend significant periods doing research in Japanese laboratories, and to the larger U.S. scientific community obtaining maximum benefit from the Japan-related experiences of technologically sophisticated Japan experts. Objectives of this conference are: 1) To generate awareness of the value of scientists and engineers with Japanese language fluencey and knowledge about the Japanese culture and research environment to U.S. industry; 2) To inform industry and scientific community that technologically sophisticated Japan experts are available and ready to join the ranks of U.S. companies; and 3) To provide a forum to discuss future directions and priorities needed to fully utilize and assure futher development of the human resources vital to building the U.S.-Japan relationship.